Math Teacher Institute (MTI)

9355735 Abstract The Mathematics Teacher Institute is a three-year project, at $547,098, through the California State University, Dominguez Hills Foundation to provide teacher enhancement to 50 area high school teachers in schools that will receive students from the Renaissance Middle Grades Mathematics Project. Participants will be involved for three summers, each with six school year follow-up sessions. The first two summers will include 4-week programs with a focus on mathematics content, unifying curriculum themes, instructional strategies, and use of technology in moving to a standards-based high school curriculum. The third summer session will be one week with a focus on designing a school plan and staff development activities with involvement of the building principal.